Coherent Control of Continuum Quantum Processes

Theoretical calculations are performed using the methods of time-dependent quantum mechanics to manipulate electronic wavepackets created by short laser pulses. The objective is to use these external fields to control the outcome of processes in the atomic continuum.